Undergraduate Engineering Technology Program for the Hearing Impaired.

The Physics Department of Gallaudet University will estblish programs in Computer Engineering technology and exit at three levels of proficiency: A.A. (Engineering Technician), B.S. (Engineering Technologist) and Certificate (suitable for change of career re-training). Instruction will be laboratory oriented emphasizing hands-on-experiments for all topics. All faculty serving the program will be proficient in the Simultaneous Method of Communication for hearing impaired persons. This method of communication employs the simultaneous use of sign language, finger-spelling and speech permitting each student to employ the proficient. Thus, this program in addition to being a model for the training of the hearing impaired will also serve as a hearing impaired students full and equal access to classroom instruction and faculty assistance.